Pan American Advanced Studies Institute: Physics at the Nanometer Scale; San Carlos Bariloche, Argentina, June, 2003.

0221194
Ponce

This Pan-American Advanced Studies Institutes (PASI) award on physics at the nanometer scale, jointly supported by the NSF and the Department of Energy (DOE), will engage graduate and post-doctoral students from the hemisphere in an intensive course of 10 days duration in an area of nanotechnology of much current interest. Organized by Dr. Fernando Ponce of the Arizona State University and Dr. Carlos Balseiro of the Centro Atomico de Bariloche, Argentina, the PASI will be held at the Centro Atomico de Bariloche, June 1-12, 2003 and will feature tutorials and lectures on nanomagnetism, nanowires and nanotubes, nanoparticles, nanoelectronics and transport through nanodevices, nano-optoelectronics, nano-fabrication and nano-characterization, and bio-nanotechnology. In addition, the PASI will include poster sessions for the presentation of research studies and results by junior and other participants, in order to foster content-specific interactions. This intensive exchange should promote future collaborative research with the next generation of scientists. Expected outcomes are a book, videotapes of the proceedings, and a web site with at least summaries of the lectures.